Computerized Data Acquisition for Human Factors Laboratory

This project enhances two undergraduate courses that make use of this institution's existing human factors laboratory. Students using the laboratory experiment with real-time data acquisition in a data- intensive (e.g., 50 to 100 sample/second) environment. Using the data acquisition setup supported by this award, students take many more samples for longer durations than previously possible. The data acquisition system also pre-processes the data from the interfaced human factors devices to give students a greater degree of confidence in their experiments than with manual systems. The equipment supporting this lab includes networked Apple Macintosh computers (II's and SE's) with A/D interfaces and data acquisition software. This award is being matched by an equal sum from the grantee.